Diffraction-Free Apertures

The purpose of the experimental and theoretical research proposed here is to design and study amplitude transmission apertures that create and transmit beams not subject to diffraction spreading. The technical and theoretical feasibility of non-diffracting apertures was proposed recently in theoretical work at the University of Rochester by Durnin. Professor Eberly proposes to demonstrate the formation and propagation of optical beams with spot sizes smaller than 100 microns with less than 10% beam spreading over path lengths on the order of meters. The potential is great for near-term applications in such areas as laser-scribing, laser micro-welding and even laser surgery, where narrowly focused beams with unusual depth of field are desirable.